Improvement of Remote Sensing Instruction at Northern Arizona U Through the Use of a Digital Image Processing and Display System

This award will provide funds for the introduction of a modern digital image processing and display system into the undergraduate Remote Sensing Program at Northern Arizona University. The new equipment will consist of a MicroVAX II computer system interfaced with an IVAS processor and display device. A comprehensive image processing software package for the rectification, enhancement, classification, and merging of digital image data sets, including future upgrades, will be provided by the U.S. Geological Survey. Improvement of course instruction and "hands-on" laboratory experience with image processing algorithms is the primary objective of the effort. The addition of this system to the Remote Sensing Program will enable students from a variety of disciplines to develop a practical working knowledge of digital image processing and associative analytical procedures. This experience, in turn, will better prepare the students for graduate studies and professional careers when a knowledgeable perspective on digital image processing is required. The grantee institution is matching this NSF award with funds from non-Federal sources.